Research Experiences for Undergraduates in Chemistry at Harvey Mudd College

9322804 Van Ryswyk Dr. Hal Van Ryswyk and other members of the Chemistry Department of Harvey Mudd College are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, nine undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry -analytical, inorganic, organic, physical and biochemistry. Women, minorities and disabled will be targeted.